Theoretical Modeling of Multi-Site Cation Adsorption

9526623 Sverjensky This project is to develop a new multi-site model for the adsorption of protons and cations onto oxide and silicate surfaces that does not depend on empirical prediction of surface equilibrium constants from aqueous complexation constants. After the new multi-site model has been calibrated, surface equilibrium constants should be predictable from the properties of the underlying crystal structure. The model will be calibrated using published experimental data for surface titration, adsorption from solution, and surface spectroscopy. The model will enable the prediction of adsorption behavior for many different mineral and solution compositions, which should facilitate the application of the model to both oxides and silicates in nature.